REG: Real-time Imaging of the Plasma Spray Process

9311053 Berndt A LaserSrobeTM Control Vision Inc. equipment for the direct visualization of thermal spray processing will be purchased. This equipment will be used in projects such as the optimization of the thermal spray process; and analysis of the single-wire, electromagnetically coalesced, and waterstablized plasma (WP, EMCP, and WSP respectively) forming operations.